Skymath Demonstration Project

9450248 Pearlman This project involves students actively in mathematical problem solving suing real-time weather data and on-line computer technology. Supplementary units for the middle school mathematics curriculum four to six weeks in length are being developed. The units are to be cross-disciplinary; involving map-reading, geography, social studies, physics, and mathematics. Mathematical topics include discerning patterns. making conjectures, communicating mathematics, analyzing numerical and graphical data, measuring, symbolizing and the using scales.